Passive Control of Mechanical Systems with Coordination Requirements

*** 9870013 Li The objectives of this research project is to further develop a recently proposed passive velocity field control (PVFC) paradigm for the control of mechanical systems, through the application to two concrete domains; robotic debarring and teleoperarted manipulator. The new control paradigm has two unique features, namely that i) it makes explicit any coordinate requirements of the task for the system, and ii) it aims to preserve the passivity property of the closed loop system. Most previous strategies involve the decomposition of the control task into the design of a timed trajectory, and the design of a controller to track the trajectory at each instant in time. This paradigm is expected to be suited for applications where there is a strong coordination requirement and where the stable and intimate interactions with uncertain physical environment are needed for safe operation. Since the robotic debarring and teleoperated manipulation applications share these salient features, these will be suited simultaneously. In robotic debarring, the coordination requirement requirement is imposed by the constraint that the tool must follow precisely the prescribed tool path to avoid unintended material removals.. Moreover, the debarring tool must interact with the work piece to be debarred. Inappropriate interaction between the tool and the work can lead to instability, damage to the tool, and poor debarring quality. On the other hand, the coordination requirement for teleoperated manipulator systems is imposed by the fact that the motions of both the manipulator that interacts with the human and of the manipulator performing the actual manipulation must mimic each other. In addition, a teleoperated manipulator must physically interact with both the human operator and the work environment. A combine theoretical and experimental approach will be taken in this project.***